Efficient algorithms and data structures via geometric realizations

Abstract of project: Efficient algorithms and data structures via geometric realizations
Assaf Naor
When one needs to perform an algorithmic task on a large data set it is often the case that the best
way to fathom the massive amount of information contained in the data is to visualize it geometrically. By
representing the input as a geometric object one can observe certain helpful features, such as clusters or
low-dimensional structures within the data, and harness this structural information to solve the algorithmic
problem at hand. In recent years the geometric approach to the design of algorithms has been greatly enhanced
by the use of powerful methods from modern mathematics. This research project is at the frontier
both for mathematics and computer science. Using ideas from analysis and geometry, combined with modern
algorithmic methods and intuitions, the investigator's study will lead to advances on central algorithmic
primitives for a wide variety of tasks ranging from combinatorial optimization and machine learning to
information retrieval and bioinformatics.
The goal of this research is to embed data into a well understood geometric object (such as Euclidean
space), so that certain essential features of it are preserved. This makes it possible to harness intuitions and
methods that were not available before the embedding was performed. The investigator will develop new
mathematical tools for the study of algorithms for partitioning and clustering large networks, techniques for
dimensionality reduction, constructions of compact representations of data, and methods for fast similarity
search and classification. The proposed research will be of interest to computational scientists in a broad
range of areas. The connection between mathematics and computer science will be deepened in order to
disseminate powerful new ideas for algorithm design.
1